Organizational Determinants of Compliance with Greenhouse Gas Emissions Standards

SES - 1123262
Don S. Grant II
University of Arizona

Organizational Determinants of Compliance with Greenhouse Gas Emissions Standards

Abstract
Coal utility and oil refinery industries are thought to be responsible for nearly 40 percent of greenhouse gas (GHG) emissions in the U.S. While industry-level trends have been studied widely, we know little about the role of individual facilities or plants in GHG emission trends. This project addresses three research questions: Which coal-based power plants and oil refineries have the highest emission levels and emit the most GHGs per job? Which sets of organizational factors cause variation between GHG emissions at the plant level? How can we explain differences in responsiveness of plants to regulations at the state level?

To answer these questions, this project will use a unique data set on individual facilities and their GHG discharges, to be released by the Environmental Protection Agency (EPA). The project will employ multivariate techniques as well a fuzzy set analytic methods that can determine which combinations of organizational factors are associated with differences in emission outcomes. Consistent with research on environmental disproportionalities and organizational configurations, the project tests four hypotheses: 1) GHG emissions and emissions-to-job ratios are unevenly distributed across facilities within the coal utility and oil refinery industries, 2) Those facilities with extreme GHG emission levels and emissions-to-jobs ratios share certain combinations of organizational characteristics, 3) These organizational "profiles" exert significant effects on GHG emission levels and emissions-to-jobs ratios even after controlling for other relevant factors, and 4) The response of facilities to different kinds of state-level climate change policies and regulations depends on their organizational profiles.

This innovative project is the first of its kind and scope to study the causes of GHG emission outcomes at the facility or plant level. Analyses rely on heretofore unavailable data on the organizational sources of regulatory change and the effects of regulatory policies at the site of production. The proposed project will also pioneer a new possibility for secondary research connecting GHG emissions data with other information on the characteristics of facilities.

Broader Impacts
Findings from this study may be used by future scholars to systematize their research and select the most causally relevant cases for comparative case studies. Findings from this project may also inform future environmental policies and regulations at state and federal levels, both with regard to GHG emissions as well as other environmental pollutants. Findings may also help federal officials decide which facilities are most likely to comply with which national regulatory standards. Moreover, findings may be of interest to industry, as it may become possible to target future regulatory initiatives at specific subsets of plants rather than devising regulations to which all plants in the coal and oil industries are subject. Finally, project results could support industry initiatives to optimize self-regulation and environmental performance of member facilities.